Structure and Dynamics of Hydrogen Bonds and Related Interactions

In this project in the Experimental Physical Chemistry Program of the Chemistry Division, Bevan and Lucchese perform an experimental and theoretical study of hydrogen-bonded and related proton-donor-proton acceptor dimer moleculess. Vibrational- and rotational-state-resolved infrared spectroscopy will be combined with theoretical modeling to investigate the nature of the interactions including geometries displaced from those occupied by the ground state. Complexes of homologous series of hydrogen halides and isoelectronic proton donors will be examined to gain a quantitative understanding of the hydrogen bond and related interactions in systems spanning Group VII elements. Two absorption spectrometers, one an FTIR instrument and the other an infrared diode laser spectrometer, both with supersonic slit-jet sample sources, will be used to study small (HX)n clusters and rare-gas-HX dimers. The range of applicability of the Buckingham-Fowler (B-F) electrostatic-plus-hard-sphere interaction model will be considered. Hydrogen bonds are not really chemical bonds such as exist in molecules, but rather they are weaker attractions between the hydrogen atoms of one molecule and other atoms in a neighboring, or even in the same, molecule. These interactions strongly affect such phenomena as the boiling point of water, the melting point of ice, and the structure of strands of DNA and have an impact in such wide-ranging disciplines as biochemistry, chemistry, genetics, and advanced materials technology. The results from these studies will help us understand better the nature of hydrogen bonds.